Charge Changing Collisions with Solid & Gaseous Targets

In this three-year U.S.-Yugoslav cooperative research project between Teodor Ast, University of Belgrade, V. Kramer, Jozef Stefan Institute and Robert G. Cooks, Purdue University, the investigators will continue their mass spectrometry studies of polyatomic ions. Specifically the group will study organic ion/molecule reactions, metastable ions and ion/surface interactions. Complementary research is proposed. Ion systems will be examined under high energy and gaseous conditions (Yugoslavia) versus low energy and solid conditions (U.S.A.). The experiments will advance efforts to characterize organic ion structures by mass spectrometry. This project was approved by the U.S.-Yugoslav Joint Board on Cooperation in Science and Technology and is supported through a joint fund consisting of matching contributions from the governments of the United States and Yugoslavia. The U.S. contribution is provided annually by the Department of State. No NSF funds are involved. Grants are made to the principal scientific institution in Yugoslavia, but include dollar funds for U.S. scientist travel to Yugoslavia and for Yugoslav scientists' living expenses in the U.S.